Computing in Organizations, 1985-1992

This study develops and analyzes comparative data on change in the uses of computing by a representative selection of greater New York private sector firms. Returning to the sample studied by Attewell and Rule in the late 1980's, the proposed research will document changes in computing use and in other basic features of the original 184 establishments. Detailed telephone interviews will be carried out with as many of these establishments as possible, and site interviews will take place in a sub-sample of about fifty. Resulting analyses should illuminate the form and extent of change in computing activities over roughly seven intervening years, as well as the determinants of such change.